Nuclear Magnetic Resonance Instruction for Undergraduates

The nuclear magnetic resonance spectrometer system is used to introduce undergraduate chemistry and physics students to an important area of modern spectroscopy. The instrument is used in introductory organic chemistry, advanced organic chemistry, and quantum physics courses. This instrument is also used in a newly developed integrated laboratory course in inorganic, analytical, and physical chemistry. Students in the senior thesis programs in chemistry and physics utilize this instrument extensively, and thus gain instrumental experience with modern equipment similar to that they will encounter in industry or graduate school. This hands-on experience also enhances understanding of the theoretical concepts introduced in the lecture portion of the courses. The grantee provides funds for this project that are an equal match for the NSF award.